Theoretical Nuclear Physics

9319641 Kisslinger Research in theoretical medium energy nuclear physics in the following areas: (1) studies of perturbative and nonperturbative QCD for the quark/gluon structure of hadrons and nuclei by QCD sum rule methods and by light-cone Bethe-Salpeter models; and (2) the development of relativistic Hamiltonian dynamics for nuclear physics and for quark models of hadrons. In (1), the method of QCD sum rules will be used for the determination of hadronic properties. For the nucleon, studies will include the axial coupling constant, the neutron-proton mass difference and the parity-violating nuclear interaction. Weak hyperon decays will be calculated. For heavy-light mesons vector-pseudoscalar mass differences and leptonic decay constants are being determined including both perturbative and nonperturbative QCD. Extensions of the QCD sum rule method will be studied using nonlocal condensates for quark distributions. The transition from nonperturbative to perturbative QCD will be studied in light-cone Bethe-Salpeter models of pion and nucleon elastic form factors. Studies of quark cluster structure of nuclei, and properties of hadrons in nuclear matter will also be carried out. In (2), a major study of nucleon Compton scattering, recently completed, will be extended to other areas. Extensive calculations of nucleon electroexcitation using light-front particle dynamics will proceed. Earlier treatments of deuteron electromagnetic processes will be extended to different kinematic regimes, including quasi-elastic electrodisintegration and photodisintegration. A new study of nucleon Compton scattering will proceed. ***